Reinventing the System

9350084 Mills Building upon existing corporate and educational resources in the area, the San Diego Unified School District proposes to conduct the following planning activities: Convene a broad based group of stakeholders to guide the self study/planning process. Expand partnerships. Expand learning opportunities beyond the classroom. Become a catalyst for change. Teacher quality is viewed as the central focus of the USI. An 8 - 12 member steering committee, selected from a broad-based group of stakeholders, will guide and monitor the planning process and the preparation of the final implementation proposal. Specific research and evaluation activities will be initiated and utilized to inform the public about the planning grant opportunity. The award period is for 12 months. ***